Conference on Digital Library Use

This award is to support the Allerton Conference/Institute on the uses of digital libraries. The study of how the new resources, tools and services that fall under the rubric of digital libraries are in fact being used is critical to help assure that digital libraries are suitable for the tasks they are meant to support. The objectives for this conference are to increase understanding of digital library needs and uses, to improve participants skills in the conduct of formative and summative digital library evaluations, to share results of digital library use and usability studies, and to provide an opportunity for digital library researchers to meet and lay the foundations for future interactions. These objectives will be met by convening an interdisciplinary group of experts in information system design and evaluation with others currently involved in a wide range of digital library projects. A specific aim is to connect the current Digital Library Initiative projects with similar work conducted around the world. The participants will present and discuss results of their digital library use studies, hold small group working sessions, and demonstrate new user interfaces and online data collection techniques, and conduct roundtable discussions of key research issues.